Conference: Quantum Algebras and Representation Theory

This project supports participation in the conference "Quantum Groups and Representation Theory" to be held on October 12-15, 2024 at North Carolina State University. Quantum groups, which are generalizations of Lie groups and Lie algebras, are mathematical notions that describe symmetry in mathematics and physics. The conference aims to stimulate research collaboration in the representation theory of quantum groups and related topics. The conference will feature expository talks by leading researchers and provide a forum for experts to survey the current developments in the area. The conference will provide opportunities for graduate students and early-career researchers to enhance their research programs.

The conference will focus on several aspects of the representation theory of quantum groups and related algebraic structures, specifically, quantized enveloping algebras, quantum function algebras, Yangian algebras, Kac--Moody Lie algebras, Hecke algebras, canonical and crystal bases, vertex algebras, Hall algebras, cluster algebras, Hopf algebras, and Khovanov-Lauda-Rouquier algebras or quiver Hecke algebras. The conference website is https://sites.google.com/ncsu.edu/conf-quantum-groups-rep2024.